CIF: Small: Accelerating Stochastic Approximation for Optimization and Reinforcement Learning

This project concerns the design and analysis of recursive algorithms, which have broad applications in engineering and computer science. Recursive algorithms play a crucial role in machine learning systems like ChatGPT, which rely on large amounts of data for training. Reinforcement learning, a field with numerous famous examples, utilizes recursive algorithms for training computer programs; among the most famous examples include computer programs that excel in games such as GO and chess. Training is interpreted as "learning" optimal responses (e.g., the next move) based on observations (the current configuration of a chessboard). While stochastic approximation is recognized as a mathematical model for recursive algorithms and plays a major role in the mathematical theory of learning, the supporting theory has not kept pace with empirical success. In reinforcement learning, it is often uncertain if training will be successful or how much training is required. Along with fundamental research to create new foundations for algorithmic learning, the research project also involves graduate student mentoring, dissemination of new and existing research results through online video lectures, and also dissemination through the Workshop on Cognition and Control organized by the investigator, which is held annually at the University of Florida attracting speakers from across the U.S. and abroad.

Techniques will be developed to ensure stability and accelerate convergence of stochastic approximation algorithms in terms of transients and variance. New approaches to algorithm design will include techniques based on ordinary differential equation methods, recent theory of Markov processes, and approaches to learning based on quasi-random exploration. Much of the work in algorithm design reduces to a feedback control problem, initially posed in continuous time to leverage concepts from nonlinear control and stability theory. A remarkable example is the Newton-Raphson flow which is globally convergent under mild assumptions. A dependable "algorithmic feedback law" in continuous time is then translated into a reliable and efficient algorithm implemented in discrete time. The general theory will be developed within two specific application areas: reinforcement learning and gradient-free optimization. Reinforcement learning presents the greatest challenge because, to-date, there is little theory available to establish the stability of these recursive algorithms outside of very special cases. Moreover, in recent work the investigator with his students have shown that Markovian memory can result in very slow convergence, even when the algorithm is optimized; in such cases it is necessary to change the algorithmic goal without negatively impacting the quality of the final solution delivered by the algorithm. In the case of reinforcement learning the primary objective is to efficiently learn an effective rule for decision making (i.e., a policy). Fortunately, there is great freedom in choosing a criterion of fit for learning the best policy within a given class.